NSF Future Spectrum Technology and Policy Workshop

This workshop will be the Second NSF Workshop on Future Spectrum Technology and Policy, and will be held on 25-27 May 2005 in Washington, DC. NSF sponsored a joint NSF-FCC workshop in May 2003 to foster more awareness within the research community of the research challenges related to spectrum policy. The focus of this latest meeting will be on reassessing the technical needs and research priorities for enabling new radio applications and capabilities as well as new U.S. policy concepts. This proposal includes funding to support participant travel to the workshop.